Community Phylogeny and Global Phylogeography of the Neuston

"This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)."

This project aims to construct the first marine community phylogeny. It is inspired by the integrative perspective that lies at the core of the modern concept of biodiversity. Empirical realization of this integration requires that study systems be simple enough to be tractable, yet (ideally) contain compelling ecological and evolutionary phenomena. The target marine community, the neuston, embodies these characteristics to an exceptional degree. It consists of a relatively small number of interacting species that drift at the water/atmosphere interface of the planet's subtropical gyres (40% of oceanic surface area) and play an important role in open-ocean epipelagic food webs. The ecological base of the neuston community is an endosymbiosis involving chondrophore cnidarian hosts (Porpitidae) and their dinoflagellate photosymbionts. Chondrophores are preyed upon by a variety of predators, chief among them two lineages of highly specialized gastropods (Janthinidae and Glaucinae). This prominent open ocean community has been poorly studied, apart from its resident insect genus Halobates. The investigator aims to complete a combined phylogeny/phylogeography of neuston taxa across three trophic levels (photosymbionts, chondrophore hosts, predatory gastropods) and all 5 subtropical gyre systems. The two main goals of the community phylogeny section are to determine the evolutionary origins of the photosymbiosis, and to establish the benthic sister lineages of both gastropod lineages in order to identify the synapomorphic changes associated with ancestral ecological transitions from benthos to neuston. The primary aims of the phylogeographic section are to establish the spatial scale of speciation for the target neustonic taxa, and to test three hypotheses of within-species genetic structuring: global panmixis; ocean basin panmixis; within gyre panmixis. The investigator has developed a multi-faceted sampling strategy that involves ichthyoplankton research colleagues in multiple gyres systems, the bi-coastal, ocean-going ships and students of the Woods Hole Semester at Sea program, national and international museum collections, and an informal network of colleagues worldwide that will sample spontaneous neuston stranding event. He has also established collaborative relationships with colleagues expert in cnidarian, nudibranch, caenogastropod and epitoniid diversity, who will work closely with him on their respective groups within the neuston and, for gastropods, also within benthic sister lineages. To-date, preliminary samples from 3 of the 5 gyres have yielded results that not only demonstrate the feasibility of the primary project goals, but also provide exciting initial insights into the generality of the photosymbiotic association, the putative benthic sister lineages of neustonic gastropods, the likely presence of cryptic species complexes, and the divergent patterns of among-gyre and among-basin genetic structuring exhibited by sister taxa.

This project has an unusually extensive student outreach component in the form of the >100 Sea Education Association (SEA) undergraduates and high school students that will participate in multiple upcoming SSV Seamans & SSV Cramer cruises and who will collect neuston taxa. The investigator will provide detailed electronic feedback to the SEA courses, in the field, so that students will be able to connect the organisms they collect with the biogeographic and evolutionary hypotheses being testing, and to determine for themselves which hypotheses the available data reject, or corroborate. One graduate and three undergraduate UM students will receive in-depth training during this project. The graduate student, Celia Churchill, has participated in offshore neuston sampling, generated much of the preliminary data, and recently presented at her first scientific meeting. She will work/train with the P.I., and also with 4 expert collaborators, directly in their laboratories for 2 of them. One UM undergraduate student has already worked directly on this project and the investigator will recruit at least two more. Substantial international outreach and collaborative activities are planned across research specialties, especially involving ichthyoplankton colleagues working in different gyre systems, as well as international museum colleagues. This study promises to significantly enhance background knowledge of the vast subtropical gyre surface ecosystem, now heavily impacted, even in mid-ocean, by the incremental accumulation of non-biodegradable, plastic flotsam. This is a major new marine conservation issue that is just now entering public discourse, e.g., see recent descriptions of the North Pacific's Giant Garbage Patch in the popular press.